Presidential Faculty Fellowships

This Presidential Faculty Fellow award is made in recognition of significant achievements of this principal investigator as a researcher and teacher, with potential for future contributions to this country's scientific and engineering enterprise. The research supported by this award is in the general area of image synthesis in computer graphics. In particular, the following topics will be investigated: (1) Real-time walkthroughs of complex environments (2) Controlled-precision photorealistic image synthesis, in which reliable error metrics are used to improve both speed and accuracy and (3) Computer-generated pen-and-ink illustrations.